Computer Applications in Electromagnetics Education (CAEME)

CAEME seeks to stimulate and accelerate the use of computers in electromagnetics education. Steps for achieving this include: 1) developing a catalog to include brief descriptions of available software in all areas of electromagnetics education, 2) document and publish in a standard format some of the available software, 3) stimulate research to create new systems and tools for improving the quality of undergraduate electromagnetics education, 4) provide a mechanism for distribution of the software. Support for this project from other sources is expected to be an approximate match for the SF funds.